Dissertation Research: Examination of Prehistoric Jordanian Economies

Lamberg-Karlovsky Under the direction of Dr. Lamberg-Karlovsky, Ms. Meridith Chesson will collect data for her doctoral dissertation. Building on pilot work in 1993, Ms. Chesson and her collaborators will conduct archaeological excavation at the site of Tell el-Handaquq South which dates to the Early Bronze Age and which is located in the Jordan Valley. Research indicates the presence of substantial fortification walls which encompass the entire 10 hectare site. At lease seven towers complement the fortification system. Over the entire site, room blocks are visible on the surface, some with walls extending for more than 30 meters. Test excavations in one set of room blocks revealed domestic architecture with associated ceramic, lithic, faunal and groundstone remains. The site therefore has the potential to shed significant new light into household organization during the period when fortified highly organized villages first emerged in the Near East. Ms. Chesson will uncover a large domestic area and analyze the range of cultural materials thus recovered. She will attempt both to reconstruct the range of social and economic activities which occurred within household compounds and to determine the nature, function and importance of the household unit in Early Bronze Age times. Archaeologists are interested in the processes which lead to the rise of cities and complex civilizations. While traditionally, much attention has been focussed on temples and major public buildings, both archaeological and ethnographic research indicate that the household constitutes the basic level at which change and adaptation occurs. Given clearcut evidence for the presence of household compounds at Tel el-Handaquq and the ease with which they can be excavated, the site provides an excellent opportunity for examination of this issue. The project is also important because it will both produce data of interest to many archaeologists and assist in the training of a promising young sci entist.